Algebraic Maps: Hodge Theory and Algebraic Cycles

The investigator works on the topology of complex algebraic maps,
with applications to algebraic cycles. The study of the relations between the topology of the domain and target of a map is
interesting and has broad applications in the fields of geometry and topology. This project aims at
1) Furthering the study and the understanding of the Hodge
and Chow-theoretic properties of complex algebraic maps and at
2) Explicitly studying these properties in significant cases.

The term ``algebraic maps" above is a technical term for polynomial equations. Algebraic geometry is the discipline devoted to their study. It is an ancient subject rooted in the early achievements of humanity, like the wheel, the Egyptians' elliptical flowers arrangements and Archimedes' burning parabolic mirrors. Circles, ellipses and parabolas arise from the polynomial equations we study in high school.
They are both beautiful and ubiquitous in nature as they describe many natural phenomena, from the motion of planets to the shape of leaves and flowers, to the behavior of microscopic particles. The funded project is strongly inclined towards pure research and proposes to study the deeper properties of the solutions to more complicated
algebraic equations. As it has always been the case, pure and applied mathematics will influence each other and new abstract ideas will fuel the progress of applications.